Extratropical Storms and Sea Level Extremes in New England

Storms coming from the northeast, also known as Nor’easters, are a leading cause of extreme coastal flooding in New England, producing damages that are comparable to those from hurricanes. This project will investigate coupled atmospheric and oceanic processes over the North Atlantic that drive sea level extremes in New England. The goal is to use coastal ocean models in combination with machine learning to develop a framework to understand, predict, and assess how large-scale ocean currents and wind patterns, storm properties, and sea level rise produce these sea level extremes. The results, datasets, and forecasting methods established in this project will be shared with coastal resilience managers, specifically the Community-Driven Coastal Climate Research and Solution (3CRS) Resilience Hub that collaborates with New England waterfront communities. They will also be used to inform coastal observing practices. In addition, the project includes student training and work force development.

This project targets critical gaps in knowledge and forecasting of extratropical storm dynamics, ocean response, and coastal flood risk in New England. Three interconnected topics will be addressed as they relate to extreme coastal flooding in New England: predictability, storm properties/impacts, and future risk. The proposed work is focused around three tasks, corresponding to these topics, that will 1) develop statistical and machine learning models to quantify and assess the predictability of extreme coastal flooding using large-scale climate and weather drivers, 2) apply high-resolution regional ocean modeling, in both realistic and idealized configurations, to examine how storm properties translate into dynamical impacts on the coastal ocean and associated flooding, and 3) apply the outcomes from tasks 1 and 2 to analyze ensemble climate simulations, project future changes in storm statistics and properties, and predict worst-case coastal flooding scenarios.